Neural Mechanisms for Anoxic Survival

9985434
Lutz

The turtle brain is uniquely able to endure and function under many hours of totally anaerobic conditions. We intend to discover the role of neurotransmitters in providing this anoxic tolerance. The work will focus on how neurotransmitters modulate the brain electrical depression that is a key to anoxic survival and will investigate the role of the inhibitory neurotransmitter GABA in long term anoxic survival. The turtle brain has proven to be a most valuable model for studies on the interaction of energy metabolism, neurotransmitter metabolism and nerve cell physiology during anoxia. By learning the mechanisms by which the turtle brain reduces energy costs, valuable insights will be provided into the processes underlying the harmful changes that occur during oxygen lack in human stroke.